A Comprehensive Approach to Increasing Minority Graduates in Science, Engineering & Mathematics Through Innovative Pedagogy, Technology & Research

HRD 98-15514
Grainger, Arthur D.
Morgan State University
This proposal plans to enhance its pre-college bridging programs and institute a post-baccalaureate bridge with graduate institutions. SEM faculty will develop interdisciplinary courses geared to enhance the understanding and relevance of the interconnectedness of SEM disciplines specifically for freshmen. Coordinators will be assigned to freshman and sophomore SEM majors, to assist these students in navigating the financial and academic obstacles they may encounter. Morgan will institute on-campus employment, and other incentives, for SEM majors to assist them in focusing on academic achievement.